Can Nanoscale Inclusions Effectively Reduce the Viscosity and Modulus of Polymer Melts?

Abstract
CTS-0098132
Michael Mackay, Stevens Institute of Technology

In a set of preliminary experiments, the PI was able to blend low concentration nanoscale particles in linear chain polymer of the same species. Remarkably, the rheology of this blended material is altered in such a way that its viscosity and modulus are reduced. This effect will have potential favorable impact on procession of polymers. The aim of the present proposal is to determine the mechanism by which the viscosity and the modulus are reduced by a set of planned experiments.